1993 Gordon Research Conference on Hydrothermal Geochemistry of Ore Deposits

9312911 Kesler This proposal requests $5,000 to pay room and board for students and assistant professors to attend the Gordon Conference on Geochemistry of Hydrothermal Ore Deposits. Support would be provided on a matching basis only to those people who can cover their own travel expenses from other sources.